Enabling Physics Research at the Information Frontier Using GPUs

One of the newest areas of computational research is in utilizing GPU (Graphical Processing Units) based technology taken from the "gaming" world and utilizing them in high impact science applications. This work will extend current work using GPU based resources to enhance research capabilities in experimental and theoretical Physics. This work proposes to expand and generalize the toolkits now available, targeting certain Physics applications at the colliders BaBar and Belle, but more generally making these tools available to the larger community.